Technical Support for the New Palomar Sky Survey

9318984 Reid This award provides for continued technical support for the second Palomar Sky Survey, a photographic survey of the Northern celestial hemisphere in three passbands -- blue-green, red, and near-infrared. The project is entering its final phase, and it is expected that plate taking will be completed in late 1997. This award helps maintain the photographic standards of the survey through support of a photographic specialist.